Earthquake-Resistant RC Frames with High-Strength Concrete and Yielding Columns

9320150 Sozen This project will investigate the effect on frame response of two parameters: (a) high-strength concrete and (b) column yielding. Physical data to support the currently existing hypotheses about the effects of high strength concrete and column yielding are lacking. Although the two parameters are of different classes (one a material property and the other a design option), lack of general theoretical understanding in either case leads to the same effect of constricting choices in earthquake-resistant design of reinforced concrete buildings. The proposed ten test specimens of reinforced column-girder assemblies have been designed to capture the essential features of reinforced concrete frames responding to earthquake excitation primarily in the plane of the frame. Sizes, materials, and loading rates will be selected to reduce scale effects to a minimum within the limits of the experimental facilities. The experimental variables are (1) Concrete strength, nominally 5,000 and 10, 000 psi; (2) axial unit stress in column, 850 and 1700 psi or one half of "balanced load", and (3) location of yielding, in the column or in the girder. The research is expected to provide: (1) direct conclusions about the effects of the test variables; (2) testing of the currently available hysteresis algorithms using the data from the investigation; (3) development, if necessary, of new hysteresis algorithms to reflect the observed deformations of the column, the girder, and the joint; (4) definition of the domains of confident applicability for the hysteresis algorithms tested or developed; (5) parametric studies of the effects of concrete strength and column yielding on frame response to serve as the base for development of simple design procedures; (6) recommendations of design procedures with defined limits of applicability. ***